Doctoral Dissertation Research: Demographic Patterns of Human Frailty

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2). Differences in morbidity and mortality are influenced by genetic, hormonal, behavioral, and environmental mechanisms. In nearly all living human populations, females experience longer lifespans and lower mortality risks, but perhaps unexpectedly, greater morbidities at some ages compared to males. This doctoral dissertation research explores sex differentials in mortality risk (i.e., frailty) to advance knowledge about the advent and nature of the culturally-dependent female mortality advantage. Analyses of skeletal collections from past populations are used to examine temporal and contextual information on past biological and social factors that increased mortality risks and affected demographic trends. Anthropological work on the production of health disparities in the past can aid in the management of modern public health challenges, including the production of current differential health outcomes. Additionally, the research highlights the connection between context-specific gender formations and physiological well-being. The project also supports student scientific training and public science education and outreach activities.

The project examines the relationship between gendered experiences and physiological outcomes by examining skeletal markers of morbidity, mortality, developmental stress, and pubertal timing, using estimated sex as a proxy for gender. The researchers investigate the antiquity of the modern female mortality advantage (i.e., did females live longer, but have poorer overall health?) by elucidating the biocultural and environmental factors involved in the production of sex-based survival advantages. The project uses demographic data (age and sex) and markers of skeletal stress to examine sex differentials in mortality risk across time periods and regions and assess pubertal timing to better understand sex disparities in standards of living. The project utilizes statistical models (hazards analysis) suited to paleodemographic data, in conjunction with skeletal and contextual evidence.